Popular Legitimation in East Germany, Support for Democracy in a United Germany: Compared to West Germany

This project studies public support for democracy in Germany as democratic institutions spread throughout the recently reuni- ted country. It constitutes the first nation-wide opinion survey conducted after the December, 1990, all-German elections. These data will be combined with data from surveys in March, 1990, and from the late 1940s to estimate and assess a model of deter- minants of pro-democratic attitudes. Some factors whose impact will be assessed are the political structure of opposition parties, historical factors, indirect influences from West to East, economics, political socialization, and nationalist or neutralist sentiments. Data collection will be by the Institut fur Demoskopie, and the project involves a high degree of coop- eration between American and German social scientists.